A Composite Model Checking Toolset for Analyzing Software Systems

9970976 Bultan, Tevfik, University of California, Santa Barbara
A Composite Model Checking Toolset for Analyzing Software Systems

In this project a new automated verification technique for analyzing software specifications called composite model checking will be investigated. Model checking is a technique for searching the state space of a system to find out if it satisfies a given property. The success of model checking procedures rely on the efficiency of the data structures used to represent the states of the system. In this project a composite model will be developed for combining multiple type-specific representations so that all variable types can be represented efficiently during the state space search. This way, representations such as Binary Decision Diagrams which are efficient for encoding Boolean variables will be combined with representations such as linear arithmetic constraints which can encode unbounded variables. A set of tools will be implemented to support composite model checking. The layered structure of the toolset will allow other researchers to use it at various levels 1) for testing the effectiveness of new representations; 2) for investigating various model checking strategies such as backward and forward search, partitioning and abstraction; or 3) for analyzing complex software specifications.